An Undergraduate Research Experience in Microelectronics and Photonics

The Iowa State REU gives students research experience by participating in projects in microelectronics and photonics. These students work along side students supported by the Department of Education Undergraduate Research Opportunities for Minorities as well as the NSF Minority Scholars Program, and the NASA supported Iowa Space Grants Program. Specifically, these students work on continuing and new projects in a) advanced silicon processing for devices and integrated circuits, b) high power and high frequency bipolar transistors and other microwave devices, c) III-V compound quantum nanostructures, d) non-crystalline silicon structures for energy conversion, and e) basic semiconductor material studies. A microelectronics fabrication course is offered each summer of the program.